Transforming Homework into Cyberlearning in an Introductory STEM Course

Physics (13)

This multi-institutional project is developing novel cyberlearning exercises involving computation for introductory, calculus-based mechanics. The exercises provide students with rich dynamic setting to gain experience with solving a wide variety of mechanics problems and build correct physical intuition by using computation to visualize motion and to model more physically realistic situations (e.g. visualize 3D motion dynamically and calculate a wide range of quantities describing the motion). The exercises are also intended to help students overcome anxieties associated with using computation, thereby reinforcing the importance of computation as a key tool for solving today's science and engineering problems.